Scallops of the Permo-Triassic Crisis

Bivalve molluscs (clams) have perhaps the best fossil record of any invertebrate group, and the sallops are particularly well-represented as fossils. Drs. Norman Newell and Donald Boyd propose to continue their career-long collaborative research into the evolutionary history of the scallops. This project would complete their efforts to document the genera and species of scallops that occur in the interval of time bracketing the worldwide mass extinction at the end of the Permian Period. Scallops are unusually well-represented in rocks of late Permian and early Triassic age, and they therefore represent an excellent opportunity to study the pattern of this extinction event. The proposed research will greatly increase our understanding of an important episode in the history of the Earth. The careful and consistent taxonomic framework constructed by investigators such as Newell and Boyd provide the best insights into the processes contributing to mass extinctions. The planned research will have important implications for stratigraphy, paleogeography, and evolutionary biology.